RIA: A Pattern Classification Method with Optimized Generalized Performance

The proposed research is directed towards finding classification algorithms that are trained from examples and achieve good generalization performance. A new training procedure is investigated that adjusts the complexity of the classifier to the problem at hand in order to optimize the tradeoff between perfect memorization and good generalization. The new algorithm applies to a large variety of classification functions, including polynomial classifiers, two layer neural networks, or radial basis functions. Initial experiments on optical character recognition problems demonstrate both its performance relative to other learning algorithms, and its efficiency regarding time and memory requirements. Topics for investigation include the estimation of the VC dimension of the resulting classifiers, and the study of the relationship between VC dimension and generalization performance on a wide variety of problems in order to obtain a robust algorithm that performs well even when no expert knowledge in the training procedure to further improve performance will be considered. the ability of the algorithm to find atypical, misclassified, or meaningless, or misclassified patterns will be investigated to automatically clean databases.